PostDoctoral Research Fellowship

Parental care is a major evolutionary dimension of the biobehavioral repertoire of many species. Despite the importance of intensive infant care in the course of human evolution and the likelihood that infant care has significantly shaped human cognition, the nature of the cognitive mechanisms underlying interest in infants is still largely unexplored. This research addresses how human cognition might be attuned to detect, process, and recall infant-related information, and whether and how these cognitive attunements are associated with adults' interest in infants. Seven studies using a combination of psychometric, eye-tracking, fMRI, and endocrinological techniques, are being conducted to address these questions.

Intellectual merit. This project is the first series of empirical studies designed to provide a comprehensive look at how cognitive mechanisms might be attuned to the detection, processing, and recall of infant-related information, and to show how they may vary as a function of the individual differences that affect interest in infants. These questions are motivated by evolutionary, anthropological, and psychological data and theory. This multidisciplinary approach follows recent theoretical and methodological developments in psychological science aimed at integrating vision science and social psychology. This project bridges these developments with research examining how sexual selection might have shaped human cognition and recent theoretical efforts that seek to incorporate individual differences into evolutionary thinking about human behavior.

This work directly informs a large body of work developed over the last three decades about how infant-like facial features affect our perception of adult faces. In addition, the results have the potential to advance knowledge about the cognitive processing of emotional stimuli, neuroendocrinology of human parenting, and the evolution of sex differences in parenting. The implications of this research is relevant to multiple disciplines, including psychology, anthropology, endocrinology and neuroscience, and therefore it will be published in journals of broad readership.

Broader impacts. Understanding the cognitive basis of individual differences in interest in infants is worthwhile from a basic science perspective, and, individually and collectively, that is the aim of these studies. But understanding these mechanisms also has important implications for application and remediation. Physical appearance affects social interactions, including interaction with infants and children. Studies show that the infant's physical appearance affects parental investment, the risk of infanticide, and affective maternal behavior. From these examples, the possibility thus arises that a better understanding of the cognitive and biobehavioral mechanisms underlying interest in infants not only can improve our understanding of how these mechanisms translate into actual care-giving behavior, but how, through the development of new screening and assessment tools, persons at risk for poor care-giving can be identified earlier so that effective interventions can be instituted before care-giving fails.

Broadening Participation. This project broadens participation of underrepresented groups in STEM fields by outreaching underrepresented groups and fostering diversity in science at various stages of the educational pipeline. At early educational stages, this project is producing a website for schools about face perception and intergroup relations. At higher educational stages, researcher assistants are trained in laboratory methods, data analysis, and education in the protection of human research participants. This fellowship contributes to mentor these students toward their long-term involvement in science. In addition, research participants from underrepresented groups have the opportunity to gain educational experience about the research process. This project also implements a cross multidisciplinary forum in Social Behavior, Neuroscience, and Diversity, which fosters an intellectual climate that encourages and values the importance of diversity in science, stimulates networking among academics and students from underrepresented groups, and promotes role models for underrepresented undergraduates pursuing careers in STEM fields.

Finally, this project enables the Fellow to gain critical theoretical and technical skills to prepare him for pursuing a tenure track position at a research university. This research serves as an empirical foundation for launching a unique research program aimed at understanding the evolution of neuro-cognitive mechanisms involved in infant care. In addition, this fellowship facilitates his involvement in institutional efforts at his host institution for increasing the recruitment and retention of minority faculty members and students.